Pipeline to High Tech Professions

The "Pipeline Program" is supporting twenty lower division and twenty upper division students with $1,000 scholarship awards per year for lower division students and up to $6,000 scholarship awards per year for upper division students over a four year period to pursue studies in Computer Science, the Physical Sciences, Biology, Engineering, and Mathematics. The project targets students from low-income families, who otherwise might not be able to pursue these courses of study; it provides academic support courses; and it seeks to improve the students' retention rate by lowering their employment load. The project is improving graduation and retention rates, thus reducing the time to graduation for scholarship recipients in the S-STEM fields. The project also expects to increase the participation rate for underrepresented groups in the S-STEM fields.